Surface Detectors for Ultratrace Levels of Toxic Hydride Gases

This Small Business Innovation Research (SBIR) Phase I project is in the general area of Analytical and Surface Chemistry and in the subfield of chemical sensors. The objective of this research is to determine the feasibility of detecting ultratrace levels of the highly toxic hydride gases arsine and phosphine by taking advantage of the reversible interaction of these gases with noble metal surfaces. Arsine and phosphine are extremely toxic with threshold values for human exposure as low as 50 parts per billion. The lower detection limits for existing technologies are only about 10-30 parts per billion, leaving too small a margin for error. In contrast, the surface detectors to be developed in this project are simple, small, relatively inexpensive, fast, and highly sensitive. Preliminary experiments have demonstrated that detection limits may be reduced up to three orders of magnitude over those attainable with currently available technology. This Phase I research will focus on the dependence of sensor response on detector type, film thickness, nature of substrate, temperature, and interferences, so that one method can be selected for more complete characterization and prototype development during Phase II. %%% This research should demonstrate the feasibility of novel technology that could help establish the U.S. as a leader in ultratrace detection. This technology could be used worldwide by the semiconductor industry and their chemical suppliers for improved safety and process control as well as for monitoring highly toxic arsine in natural gas.